SCH:INT: SCH: INT: A gamified mobile system for real-time mental health data modeling and personalized autism care across sociocultural settings

Neuropsychiatric disorders are the single greatest cause of disability due to non-communicable disease worldwide, accounting for as much as 19% of the global burden of disease. These disorders include autism spectrum disorder, which is among the fastest growing pediatric concerns today and highly representative of many other neuropsychiatric conditions. The current standards of care for neuropsychiatric disorders are negatively impacted by subjectivity, inconsistent delivery, and limited access as waiting lists grow. New informatics solutions, in particular artificial intelligence (AI), that can port to more ubiquitous mobile health devices and that are not restricted for use in clinical settings, have great potential to complement the current standards of care. With this research project, a novel digital support for autism will be developed. Specifically, working together with families and their affected children ages 2-8, we will establish a gaming system for mobile devices. This system will use augmented reality and AI to adapt to the child’s needs and foster a social exchange between the primary caregiver and the child. This mobile solution will connect families to care, fostering the development of a community of stakeholders, together with AI models capable of personalizing care and tracking progress.

This project will: (1) combine human-computer-interaction with clinically validated treatment approaches through iterative co-design with affected children and their families; (2) identify at least three promising augmented reality game modes that address core autism features including social-reciprocity and emotional understanding; (3) lower barriers to secure and trustworthy data sharing by game players; and (4) construct a series of AI models from game play data that can be used to understand and dynamically react to the treatment effect during game play. Our research project will result in an engaging at-home digital tool accessible to any family with a smartphone (iOS or Android). The project will show how this mobile AI solution can act as a scalable supplement to standard therapy and one that has the potential to reduce the healthcare burden by empowering caregivers. Finally, the research will generate solutions, code, examples, and computer vision libraries that will enable the development of a broader platform for AI in the mobile environment in socioeconomically diverse populations and set the stage for similar solutions for other mental health conditions.